Strengthening Undergraduate Education in Psychology of Aging

In view of the continued increase in the older population and the rapid advances in knowledge related to aging, it is critical that psychology faculty in 2-year and 4-year colleges keep themselves abreast of current developments in the specialized area of aging and include them in their curriculum. A two-week institute in the psychology of aging for 25 instructors from Minnesota, North Dakota and South Dakota is being conducted. The institute is focusing on current research and theory on ten different topics related to aging. The program is strengthening the participants' disciplinary expertise, enhancing their skills in presenting up-to-date material in aging to their students, and is providing them with opportunities to interact intensively with experts in the field and with colleagues from other institutions. In order to promote participants' utilization of what they learn in the institute, the project director will maintain contact with them during the following year and will conduct site visits to the colleges with large minority and female enrollments. In addition all members of the institute faculty will be available throughout the year to provide consultation to the participants. Follow-up assessments will be conducted to determine the institute's impact on undergraduate education.